CAREER: Integrated Optical and Radio Ionospheric Remote Sensing and Imaging

This project presents a career development plan for integrating research and education in the area of ionospheric and space remote sensing and imaging. The research component is funded on developing, implementing, and integrating space-based/ground-based optical and radio techniques for multidimensional, multisensor remote sensing and imaging of ionospheric electron density structures, and airglow emission layers that will provide insights into many current ionospheric science issues: equatorial anomaly, spread-F, TIDs, gravity waves, and ionosphere neutral coupling at the equator.

Education through curriculum development, advising, mentoring, and involvement of students at both undergraduate and graduate levels in all aspects of research is key element of the proposed career development plan. In particular, the PI is committed to introducing space remote sensing and imaging concepts and methodologies to engineering students, by developing their enthusiasm and inspiration for studying natural phenomena.